Two-Electron Processes in Ionizing Collisions with Hydrogen Molecules (Physics)

It is proposed to study the two-electron process of ionization plus excitation of the hydrogen molecule by fast projectiles, testing the theory of Reading and Ford. Three measurements are proposed: (1) Cross sections for excitation of various excited states, as a function of projectile velocity and charge and as a function of orientation of the internuclear axis, intended to understand higher Born contributions and the importance of nondipole interactions. (2) Cross sections for charge capture plus excitation to dipole allowed and nondipole allowed states, as well as charge capture plus ionization, intended to illustrate the importance of a fast or slow continuum electron. (3) Correlation between ejected electron and excited hydrogen molecular ion state formed in an ionizing collision.